U.S.-Bulgaria Research in Algebraic Geometry

The primary objective of this U.S.-Bulgaria cooperative mathematics project between Dr. David Eisenbud of Brandeis University and Dr. Luchezar Avramov of the University of Sofia is to jointly pursue several problems that lie at the heart of contemporary research in algebra and algebraic geometry. Efforts will address the theory of free resolutions as a means of deriving invariants of geometric structures algebraically. Homological methods will be used to extend contemporary experience in non-commutative algebra and general ring theory. Additionally, the researchers will examine the construction of cohomological invariants in relation to underlaying algebraic variety. Collectively, results of the new work should extend present knowledge in a number of related mathematical fields centering around algebraic geometry and commutative and non- commutative algebra, potentially yielding contributions to important topics like string theory and topology. This mathematics project fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.